SBIR Phase I: Polymer Light-Emitting Electrochemical Cells with Frozen p-i-n Junctions

This Small Business Innovation Research Phase I project is structured around the design,
synthesis of new organic electroluminescent (OEL) materials, and their innovative
applications in fabricating frozen-junction polymer light-emitting electrochemical cells
(LECs) - an alternative to organic light-emitting diodes (LEDs) displays. Reveo has
identified the OEL display as the most promising display technology of the future and the
solution that best meets the new demands for bright, portable displays. These bright,
thin displays will eventually replace expensive flat panel liquid crystal displays (LCDs),
but they have not yet seen huge commercial success because of the poor OEL materials and
non-optimized device fabrication techniques. The mission of this program is therefore to
develop, optimize, and commercialize new OEL materials and devices that will make OEL
displays the new market standard in the multi-billion dollar display market.
LECs fabricated with these new materials are predicted to have high luminescence
efficiency, high brightness, and longer lifetime compared with current OEL displays. The
new materials thus have excellent commercial potential as the enabling technology behind
the next generation of full-color, low-cost, flat panel OEL displays.